Postdoctoral Research Fellowship in Chemistry

Mr. Michael M. Lerner has been recommended for a Postdoctoral Research Fellowship in Chemistry Award. Mr. Lerner's doctoral degree will be from the University of California at Berkeley under the supervision of Professor Neil Bartlett. He intends to continue his research at Northwestern University under the sponsorship of Professor D. F. Shriver. Mr. Lerner's area of Postdoctoral Research will be Examination of conduction mechanisms in mixed ionic and electronic conductors and preparation of new polymer complexes with mixed conductivity.